Higher-Order Methods for Statistical Inference

DiCiccio
DMS-9972440

ABSTRACT:
The proposed research concerns methodology for accurate inference based
on likelihoods. Inference about a scalar parameter of interest in the
presence of nuisance parameters can be achieved by using the signed root
of the likelihood ratio statistic, which has the standard normal
distribution asymptotically. In situations where the number of nuisance
parameters is large or the sample size is small, the standard normal
approximation to the distribution of the signed root can be inaccurate.
Considerable progress has been made recently in understanding the
statistical properties of the signed root and in constructing analytical
modifications to the signed root that improve the accuracy of the normal
approximation. Unfortunately, the modifications can be challenging to
implement routinely, because they require elusive constructs, such as
ancillary statistics, or they involve complicated analytical
calculations, such as taking expectations of higher-order derivatives of
the log likelihood function. In contrast to the use of analytical
modifications, the proposed research focuses on the development of
simulation methods to refine distributional approximations. These
parametric-bootstrap techniques are attractive for their conceptual
simplicity and very broad applicability. However, for the simulation
methods to be valid, they must offer the same desirable attributes that
the analytical modifications possess, with regard to such key statistical
concepts as ancillarity and large-deviation behavior. A crucial component
of the proposed research is to assess the statistical qualities of the
simulation methods, particularly compared to those of the analytical
modifications. Other aspects of the proposed research involve extending
the simulation methods to models where standard asymptotic behavior
fails, such as models involving random effects, and to circumstances
where genuine likelihoods are unavailable but pseudo-likelihoods can be
devised.